Mapping Time Oriented Tools for Logic Emulation

The goal of this research is to develop fast mapping tools and architectures for logic emulations that can greatly reduce the mapping time, and thus improve the usefulness of logic emulation, and the speed of logic simulation. Being developed are: 1) technology mapping tools that integrate decomposition and covering, and 2) placement tools that use partitioning methods to do higher- quality global placement. These are designed to improve both the mapping times and resulting quality for FPGA-based implementations. Routing complexity estimators are also being developed to guide algorithm choice. These exploit the mapping time-quality tradeoffs in many techniques. Also being investigated are new FPGA architectures for logic emulators, and systems that can support much faster mapping times, yet still achieve high quality results. These steps are being integrated into a complete mapping-time oriented tool suite for logic emulation which exploits the mapping time/quality tradeoff in these systems.